Seawater Laboratory/Culture Facility

Dr. Dennis Powers is the Director of Stanford University's Hopkins Marine Station, located in Monterey, California. The Station has a long and distinguished record of research support in marine biology by Stanford faculty members and by visiting investigators. Dr. Powers proposes construction of an addition onto the Station's current open-air tank seawater system. The addition would be an enclosed environmentally buffered building dedicated to culturing and experimental studies of marine organisms. The proposed facility would increase the quality and impact of research projects currently underway at the Station, and would attract new investigators and their students to the facility. Marine labs such as the Hopkins Marine Station will have increasing impact on research in fields such as biomedical science, ecology, evolutionary theory, oceanography, and global climate change. Providing these institutions with adequate facilities and instrumentation is essential for the U.S. research community.